Systemic Teacher Enhancement Project: Progress Toward Science Literacy -- A Planning Grant

9552846 Tomkiewicz A partnership involving Plymouth State College, The Science Center of New Hampshire and the 15 participating school districts is planning to write a proposal designed to "increase the scientific content and further the development of science process skills for teachers of students in grades K-8 in Central New Hampshire. The proposed planning grant will establish a leadership team with representation from each of the participating school districts, plan a five-year professional growth program based on teacher input from needs assessment surveys and the expertise developed by the leadership team, establish an assessment team and procedures for assessing the planning grant and the long-term systemic project, plan a program that will provide strategies necessary to conduct classroom-based research and reflective teaching research practices, initiate an effort to establish a telecommunications network with participating schools and Plymouth State College, establish an administrative and support structure to sustain professional development over time, and prepare a full proposal to submit to NSF for long-term funding of a professional development program. The 15 participating administrative Units serve 1623 K-8 teachers and 22,351 K-8 students in 73 schools.